Engineering Research Equipment: Controlled Stress Rheometer

Funded under an Engineering Research Equipment Grant, a Controlled Stress Rheometer is to be purchased for use in the PI's departmental laboratory in several projects. The projects are all in the area of coatings and ceramic suspensions. They include microgels for coatings, evaluation of floculants, and liquid composites for better fiber spinnability. The issue in these areas is quantifying particle interactions in concentrated dispersions. The relevance of the research is to more environmentally friendly coatings, and better polymer fibers for a variety of industrial uses.